Conference Support for Edge Computing Workshop

We request support for a workshop on Edge Computing using New Commodity Architectures. The workshop will be held at UNC Chapel Hill in May 2006. It will bring together leading researchers and developers from computer architecture, computer graphics, compilers, database and data streaming, high performance computing and GPGPU. We also expect significant participation from industry and federal agencies. We request travel support for invited speakers and graduate students.